SGER: Complexity, Systems, and Control in Nanobiotechnology: Developing a Framework for Understanding and Managing Uncertainty Associated with Radically Disruptive Technologies

The proposal pertains to Small Grant for Exploratory Research (SGER) proposal be funded at the amount requested. This is small scale, exploratory research. Under the guidelines contained in NSF 04-23 for SGERs (page 33), the proposal was not subject to external review.